Creep-Fatigue Damage Mechanism and Life Assessment in Structural Materials Under Complex Loadings

The objective of this research is to investigate creep-fatigue damage and to develop macro-micro based life prediction rules for engineering materials under complex loadings. Gas and steam turbine components, piping and pressure vessels in power plants and the national aerospace plane are subjected to complex cyclic mechanical and thermal loadings where the developed life prediction rules could be used to assess the residual lives of these structural components. This study will use a state-of-science structural materials, such as Type 304 or 314 stainless steel, or the superalloys of Waspaloy, Rene 45 or Inconel 718. The microstructures and the microdeformation processes will be related to the macroparameters in this life assessment analysis. The PI is a minority applicant.